Mathematical Sciences: An International Conference in Game Theory: Principles and Application of Game Theory, Columbus, Ohio; June 1987

This project is a seven day international conference in Game Theory and its applications which will be held at Ohio State University in June of 1987. The conference will bring together leading game theorists from throughout the world to discuss recent developments and directions for future research in the field. In addition, representatives from the social, behavioral and economic sciences and from evolutionary biology and computer science, will be invited to address current applications of game theory in their respective areas. The conference will deal with issues like repeated games with or without discounting, games with incomplete information, value of information, bounded rationality, refinements of the Nash equilibrium concept, and application of the above to imperfect competition and to industrial organization. The conference will also deal with cooperative games and will mainly focus on axiomatizations of several central solution concepts, such as Aumann's recent axiomatization of the Shapley value to the non-side-payment games and Peleg's recent axiomatization of the core corresponding for the non-side-payment games